Exploration of Application of Biodiversity Package to the Museum Community

The existing prototype Biodiversity Insight System, which developed at the San Diego Supercomputer Center to integrate geographical and informational database with a "generic modeling engine" to permit predictions of species distributions, will be tested on museum and multi-national databases. In addition, a description of the characteristics of the BIS system will be widely provided to museums and other biodiversity database holders.